Critical Issues in Mathematics Education 2017

This conference will continue the workshop series, Critical Issues in Mathematics Education (CIME) on teaching and learning mathematics, initiated by the Mathematical Sciences Research Institute (MSRI) in 2004. The topic for CIME 2017 will be "Observing for Access, Power, and Participation in Mathematics Classrooms as a Strategy to Improve Mathematics Teaching and Learning". The CIME workshops engage professional mathematicians, education researchers, teachers, and policy makers in discussions of issues critical to the improvement of mathematics education from the elementary grades through undergraduate years. The workshop will deal with the problem of providing quality math education to all, and the barriers to doing so. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This work is also funded by the IUSE program which focuses on innovation in undergraduate STEM education.

The CIME workshops impact three distinct communities: research mathematicians, mathematics educators (K-16), and education researchers. Participants learn about research and development efforts that can enhance their own work and the contributions they can make to solving issues in mathematics education. Participants also connect with others concerned about those issues. Workshops are designed to recruit key individuals to the improvement of mathematics education, frame critical issues, draw attention to issues of diverse participation and success, and provide images of productive engagement for participants to draw on beyond the conference.